Conference: Unified Symmetry: In the Large and In the Small, Coral Gables, Florida, January 27-30, 1994

Support is recommended for the conference "Unified Symmetry: in the small and in the large" to be held at Coral Gables, Florida on January 27-30, 1994. This conference program will include presentations and discussions on the unification of gauge fields. Gauge symmetries are the best known approach to unification of Physical theories. This conference program will include presentations of updated searches for elementary particles, more data of recent measurements of the cosmic background radiation, large scale structure, electroweak baryogenesis, news from Hubble Space Telescope, dark matter, monopoles, cosmic strings, symmetries in astrophysics and in cosmology.